Collaborative Research: Kokama-Kokamilla and Omagua: Documentation, Description and (Non-)Genetic Relationships

This collaborative project will complete the documentation and description of two highly endangered and closely-related Amazonian languages, Omagua and Kokama-Kokamilla, and seek to determine the origin of these two historically important languages. When Europeans arrived in the Americas, Omagua was one the largest languages of the Amazon basin. The Omaguas suffered tremendously during the European invasion, however, and Omagua now has fewer than ten speakers, the youngest being 80 years old. Despite the historical importance of the language, there are no grammatical descriptions of Omagua, nor any lexical resources beyond colonial era wordlists. The area and situation is similar for Kokama-Kokamilla. The researchers will work closely with the remaining speakers of these endangered languages to develop dictionaries, a collection of oral and written texts, and grammatical descriptions of the languages. Dr. Michael will focus on the documentation of Omagua and Dr. Vallejos on the documentation of Kokama-Kokamilla to create a permanent record of the languages for use by the ethnic communities, linguists, anthropologists, and historians.

Beyond the basic scientific task of language documentation, this project aims at determining the relationship of Omagua and Kokama-Kokamilla to other Amazonian languages, and in doing so, gain insights into Pre-Columbian cultural history. Although long thought to be members of the continent-spanning Tupí-Guaraní family, recent work has demonstrated that Omagua and Kokama-Kokamilla arose through contact between speakers of a Tupí-Guaraní language and speakers of another unknown language. The result was a language that mixes aspects of the Tupí-Guaraní lexicon and grammar with those from the unknown contact language. By systematically comparing the lexicon and grammatical features of Omagua and Kokama-Kokamilla with those of other language families across Amazonia, and with specific languages in the area in which these two languages are spoken, Dr. Michael and Dr. Vallejos will clarify the linguistic processes involved in their genesis, thereby gaining insights into the cultural circumstances in which they arose.